Antarctic Search for Meteorites

8817083 CASSIDY This award supports the Antarctic Search for Meteorites (ANSMET) program. The goal of the project has been to locate and collect meteorites in Antarctica, and return them for curation and distribution to researchers. A second goal has been to understand how the meteorite concentrations are related to ice-sheet dynamics. The ANSMET collection includes many meteorites of previously unknown types and varieties; continued collection is expected to provide many more such specimens, including new lunar samples and others of possible martian origin.